Efficient VLSI Implementation

This research aims at defining, studying, and simulating a functional processor architecture which provides high performance and efficient VLSI implementations. The architecture under consideration uses functional decomposition of the execute-access mechanisms and hardware implementation of the access mechanisms of data structures. Research is directed towards the design of the access portion of the processor, the development of an appropriate instruction set for the architecture, the specification of the required execute-access intercommunication, the exploration on the use of area-inexpensive queue caches, and the detailed simulation of the architecture. Improving performance of multiprocessors is an important area of research. This research is a comprehensive planned effort which defines a decoupled architecture for simulation, determines the degree of functionality associated with the data access process, and promotes the use of intelligent memory concepts. Results developed can improve bottlenecks associated with the access-execute mechanism in high- performance computers.